No Longer 'A Dream Deferred': Greater Minority SME Participation Through Academic Opportunity and Institutional Change

In order to 1) develop and implement a model for recruiting, mentoring and retaining minority students in SME doctoral programs, and 2) develop effective strategies for identifying an supporting underrepresented minorities who want to pursue academic careers, the University of Massachusetts at Amherst (UMass) will engage in a systematic faculty-driven plan that reflects best practices and approaches believed to be unique for producing minority SME doctorates. The Wass MGE plan will address the national shortage, and increase levels of minority graduate student recruitment and retention, through six major strategies: 1) create a staffed administrative SME Recruitment and Retention Unit within the Graduate School; 2) identify and recruit underrepresented minority SME candidates through the use of "Diversity Teams" of faculty, students and alumni; partnerships with invited institutions; a summer research program and exiting campus resources; 3) change admissions criteria to reflect the balanced contribution of quantitative and non-quantitative variables; 4) develop a supportive learning environment designed to enhance academic skills, self-confidence and sense of community; 5) provide opportunities for students to become involved in an integrated program of teaching and research; and 6) offer multi-year stipend packages that support teaching and research. All activities will be professionally evaluated.